Planning: SEA-PHAGES-TYCs DCL: From Soil to Sequence: Transforming Microbiology Education Through Course-Based Research Experiences at a Two-Year College

This project aims to serve the national interest by increasing the number of research opportunities available for two-year college students and to strengthen student interest, engagement, and persistence in STEM. Mesa Community College – Red Mountain has been selected to join the Howard Hughes Medical institute's (HHMI) Science Education Alliance Phage Hunters Advancing Genomics and Evolutionary Science (SEA-PHAGES) initiative. This initiative connects a nationwide network of STEM faculty dedicated to supporting the adaptation, implementation and assessment of authentic research experiences for students early in the college pathway. The SEA-PHAGES curriculum spans two-semesters and immerses students in discovery-based research that begins with isolating novel bacteriophages from soil and continues through microbiological methods, genome annotation, and bioinformatics analyses. Over two years, the project aims to determine how such programs can be effectively implemented and scaled across two-year college microbiology courses and ultimately support a more scientifically prepared workforce.

The goals of this project are to provide authentic research experiences for students, create resources and support structures to address the unique challenges of implementation at two-year colleges, and establish a community of practice to foster faculty development and collaboration. To achieve this goal, the SEA-PHAGES curriculum is embedded in all microbiology sections at MCC at Red Mountain. Additionally, faculty engage in capacity building activities for implementing and expanding research experiences for two-year college students. Assessment and evaluation efforts will assess both student outcomes and institutional infrastructure requirements for successful course-based research implementation. This research will contribute to understanding scaling and implementation at community colleges nationwide.

The NSF IUSE: Innovation in Two-Year College STEM Education (ITYC) Program seeks to accelerate the impact of and advance knowledge about emerging and evidence-based practices in undergraduate STEM education at two-year colleges.